Mathematical Sciences: Properties of Strongly Mixing Random Sequences

The principal investigator, together with other researchers at the investigator's home institution, will work in the field of probability theory. In particular, this group will work on limit theorems for sequences of random variable, both when the random variables are independent and when they are dependent.